Homotopy Theory Program at the University of Western Ontario

DMS-0314311
Paul Goerss

This award defrays travel costs for younger US-based participants to
attend the Applied Homotopy Theory Program at the University of
Western Ontario in September 2003. The program will consist of a
one-week workshop for a large range of paricipants and, for the
remainder of the month, a series of mini-courses to be given by
five senior algebraic topologists from the US and Europe. The support
in this award will be used excusively to support the participation
of US based advanced graduate students, mathematicians in post-doctoral
positions, and a few selected tenure-track mathematicians. Further
information about the conference may be found at
http://www.math.uwo.ca/homotopy/.